Washington STEM Teachers Engaging in Leadership, Learning, And Research

This Noyce Track 3 project aims to serve the national need of developing highly effective STEM teacher leaders. Additionally, this project will support 16 science and mathematics teacher fellows by providing stipends to participate in a network of STEM instructional change agents across Washington state. Using a novel Central Washington University Master’s degree program in STEM Leadership as a network hub, these teacher leaders are expected to guide other STEM teachers in their local districts to use evidence-based STEM teaching practices. The project is designed to benefit all students by developing the knowledge, skills, and perspectives of STEM teachers to provide evidence-based instruction that is student-centered. The teacher leaders are expected to increase the relevance of STEM by connecting students with appropriate STEM community partners. The proposed project components will enable high-achieving practicing teachers to become teacher leaders with extensive expertise in evidence-based, student-centered practices in STEM teaching.

This project at Central Washington University includes partnerships with McFarland Middle School, Wahluke School District, Yakima School District, Educational Service Districts (ESDs) 112 and 121, Career Connect SW STEM Network (partnered with ESD 112), Apple STEM Network (partnered with ESD 171), and the Pacific Northwest National Laboratory. Project goals include growing a network of STEM instructional change agents by developing Master Teacher Fellows’ (MTFs) capacity to lead other STEM teachers in using student-centered pedagogy, integrating project-based STEM curriculum, and incorporating authentic assessment practices. Another goal is supporting the systemic change efforts of MTFs through an effective network that promotes collaboration among a wide range of STEM stakeholders, including STEM teachers, administrators, and community/industry partners. MTFs will study peer mentoring and coaching frameworks to develop skills in using a coaching cycle and effective strategies in support of other STEM teachers’ effectiveness. A total of 16 experienced and exemplary teachers of STEM will be selected and supported as MTFs over six years to lead instructional change efforts in their local contexts (school/district) through cycles of collective inquiry. MTFs are expected to disseminate findings from these collaborative inquiry projects both within their local contexts and via an online portal to the larger network of STEM stakeholders statewide. This is intended to expand understanding of how multiple levels of the education system can work synergistically to enhance STEM teaching and learning. The project’s research and evaluation efforts have the potential to ascertain the efficacy of the Keck/PKAL model in facilitating systemic change in cross-institutional K-12 settings (i.e., across schools, districts), and contribute to the growing body of research on supporting networked change to improve STEM instruction. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation question(s): (a) How effective is overall project management and administration?, (b) Does the project recruit and retain MTFs who will teach in high-need school districts across varied educational contexts?, (c) How effective is the project in training instructional change agents? and (d) Does the project support an effective, sustainable network?. The results of this project will be disseminated to help enhance the field. This Track 3: Master Teaching Fellowships project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.